CalREN-2: The Calfornia Research and Education Network- Phase 2

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for DS-3 connections for three institutions to a California statewide network and then to the vBNS. The three institutions are California State University, San Bernardino; California State Polytechnic University, Pomona; and San Diego State University. Applications include biomedical and bioinformatics use of fractals, remote data acquisition and control research, distributed computing, and seismic research. Collaborating institutions include the National Center for Supercomputing Applications, University of Pennsylvania, University of Texas, University of Wisconsin and Rice University.